NSF Young Investigator

9357439 Grainger This NSF YOUNG Investigator award deals with research and teaching in the area of fabricating new materials by controlling molecular- level organization and assembly, where applications to membranes, films, coatings, derivatized surfaces and novel bulk media are based on principles of supramolecular architecture. ***